Data Acquisition System for Wind-Tunnel Laboratories.

The wind-tunnel laboratories used in this institution's aerospace engineering program are updated and improved, exposing students to modern computer-aided wind-tunnel technology. A mini- computer, with graphic capabilities, is interfaced to the wind- tunnels so that students can carry on experiments using real-time data acquisition and analysis. This modernization of equipment and analytic techniques exposes students to laboratory computer technology, enhances the study of experimental/analytical fluid dynamics and better prepares students for the aerospace industry and graduate study. This award is being matched by an equal sum from the grantee.